Interconnecting Research and Education in the Mathematical Sciences at Stony Brook

This award seeks to build meaningful interconnections among the various
educational and research components of the mathematics enterprise at Stony
Brook.
The Departments of Mathematics and of Applied Mathematics and Statistics have
developed strongly but in largely divergent directions. This joint proposal
enhances the instruction and research training in both departments through (i)
cooperation in areas where the strengths of one department can benefit the
other, and (ii) new initiatives that will benefit both departments. The proposal's
emphasis on expanding research teams to include undergraduates ties in with the
university mandate to develop opportunities for undergraduates to participate in
research. Its emphasis on developing pedagogy ties in with the university
mandate to revitalize undergraduate education. The proposal has four components:
A. Broadening the Research Training of Undergraduates, Graduate Students and
Postdocs;
B. Developing Vertically Integrated Research Teams;
C. Strengthening the Educational Experiences of Undergraduates, Graduate
Students and Postdocs;
D. Promoting Greater Interactions Among Students, Postdocs and Faculty in The
Two Departments

The proposed initiatives in the Stony Brook VIGRE project will strengthen the
education and research training of undergraduate and graduate students and
postdocs in both departments with better classroom learning, new opportunities
for research, and broadened career opportunities. Undergraduates will have a
variety of new experiences involving independent thinking, culminating in the
opportunity to participate in vertically integrated research teams. Graduate students and
postdocs in Mathematics will have an exposure to the types of mathematics
research that reach out to other disciplines and to industry with involvement in one such
research project. While most recent Mathematics Ph.D.'s have been successful in
finding academic employment at leading institutions, it still makes sense for
all Mathematics Ph.D.'s to be aware of a wider range of career opportunities.
Applied Mathematics graduate students will develop a better appreciation of, and
preparation for, academic careers in (unified) mathematics departments. The
employment of Applied Mathematics Ph.D.'s has swung too far in the direction of
non-academic careers. As a result of this trend, liberal art colleges have
great difficulty hiring qualified U.S.-citizen faculty in statistics and applied
mathematics. The summer internship program will build valuable ties with local
industry and business along with directly benefiting the training of the student
interns. VIGRE Postdoctoral Fellows will share in the exposure of broadened
research and career opportunities. Some will also become involved in
instructional reform, particularly in the arena of teaching preparation. All
postdoctoral Fellows will have extensive mentoring in launching their own
research programs.

Funding for this award is provided by the Division of Mathematical Sciences and the MPS Directorate's Office of Multidisciplinary Activities.